Real-variable methods on symmetric spaces and Schrodinger operators

ABSTRACT: This project concerns two main topics: harmonic analysis on
noncompact semisimple Lie groups and symmetric spaces, and unique
continuation problems and absence of positive eigenvalues of Schrodinger
operators on Euclidean spaces. The author's goal is to develop
real-variable methods that could be used to study boundedness properties
of certain natural operators on noncompact semisimple Lie groups and
symmetric spaces. Some of the problems to be investigated are the
following: sharp estimates related to the Kunze-Stein phenomenon,
behaviour of the solution of the wave equation on symmetric spaces at
large time, singular integral operators on symmetric spaces, transference
principles for operators defined by Fourier multipliers on symmetric
spaces, and maximal operators and applications in ergodic theory. The
author made progress on these problems in certain special cases, mostly
on Lie groups and symmetric spaces of real rank one. The second part of
the project is aimed at understanding the absence of positive eigenvalues
for Schrodinger operators with potentials in appropriate Lebesgue spaces
and with certain decay properties at infinity.

The problem of eliminating the possibility of positive eigenvalues for the
Schrodinger operator associated to one or many particles comes from
mathematical physics. One expects on physical grounds that such positive
energy "bound states" cannot exist. This is indeed the case for a large
class of Schrodinger operators associated to potentials which satisfy
certain uniform decay conditions, such as the Coulomb potential.
These potentials were studied in the 60's by T. Kato, S. Agmon, J.
Weidman, B. Simon, and others. In the last twenty years there has been
growing interest in extending these classical results to more general
potentials in various Lebesgue spaces.